Mathematical Sciences: Mapping Class Groups & Moduli Spaces of Algebraic Curves Conference; August 1991; Seattle, Washington

Mapping class groups and moduli spaces can be approached from several very different directions: through geometric geometry, 3- dimensional topology and hyperbolic geometry; through algebraic geometry (specifically the theory of algebraic curves); and through mathematical physics via conformal field theory. There are also interesting connections with arithmetic groups and representation theory. There is often little communication between the various groups working in this area, and the techniques and proofs of one group are often not well understood by those in another. This grant will partially support a conference whose aim is to assemble experts in these fields, together with graduate students and young mathematicians from the various fields, so that the participants can deepen their understanding of this area. This should result in a good deal of cross-fertilization and progress in algebraic geometry. The conference will be held in August, 1991, at the University of Washington.